LSAMP - The Georgia Louis Stokes Alliances for Minority Participation

The Georgia Louis Stokes Alliance for Minority Participation proposes to extend its activities
into Phase II. The Georgia LSAMP Partner institutions include the four United Negro
College Fund institutions in Georgia: Clark Atlanta University, the lead institution, and
Morehouse, Paine and Spelman Colleges. Georgia State University, the State supported urban
university and Atlanta Metropolitan College, the 2-year college partner round out the
Alliance. The Georgia LSAMP is one of the nations most productive in terms of being
among the top baccalaureate-origin institutions of Black STEM doctorate recipients: 1991-
1995 and 1997-2001. The unifying themes of the Phase II program include focused
recruitment and retention, required research participation, student financial support and
graduate school enrollment. The Georgia LSAMP in Phase II will significantly increase the
number of STEM baccalaureate degrees, impact more than 15,000 undergraduates, increase
the number of undergraduate degree recipients entering graduate school each year by 10
percent and increase retention each year by 10 percent. Student objectives for Phase II
include pre-transfer bridge activities for two-year college students, required research
participation for all LSAMP scholars, and at least 50 percent of all baccalaureate degree
recipients will complete research experiences. Faculty objectives include providing
opportunities to improve instruction skills, such as using new technologies and becoming
more effective mentors. Curriculum objectives are designed to revise introductory courses as
a mechanism to improve retention.